Charge Density Wave Dynamics at Low Temperatures

They will investigate charge density wave dynamics (depinning, damping, polarization) in the low-temperature, high-field regime, and to study the crossover from the low-temperature, undamped, rigid charge density wave to the high-temperature, overdamped, deformable charge density wave. The experimental task will focus on the search for charge density wave coherent response, such as narrow band noise, interference experiments, temperature dependence of the threshold field, and polarization, and, if time permits, the magnetic field effects on niobium selenium3.